FRG: Holomorphic Curves in Low Dimensional Topology

DMS-0244663
Yakov Eliashberg, John Etnyre, Wu-Chung Hsiang, Michael Hutchings,
Tomasz Mrowka, Peter Ozsvath, Ronald Stern, Zoltan Szabo.

This is a Division of Mathematical Sciences Focused Research Group
(FRG) award made under solicitation
http://www.nsf.gov/pubs/2002/nsf02129/nsf02129.htm

Holomorphic curves recently have emerged
as a powerful tool in low-dimensional topology.
The goal of this project is to unite and coordinate
research in the area of applications of holomorphic
curves in order to:
- construct new invariants of manifolds
of dimension 3 and 4;
- develop new methods for proving diffeomorphism
between the manifolds;
- find new relations between string theory and
symplectic geometry on the one side, and knot
theory and topology of 3-manifolds on the other.
The core of this project, Embedded Symplectic
Field Theory, is expected to provide a unified approach
to many seemingly different problems in low-dimensional
topology

The impact of this project is expected to be much broader
than its immediate goal of developing low-dimensional
topology. There is a hope that the newly developed methods
open new horizons in our understanding of links
between Topology and Theoretical Physics, and in particular
String Theory. The project should also have a significant
educational value. In particular, under this project there
will be developed a Dissertation Subject Database,
an actively managed and supported list of problems which will
serve as a source of topics of PhD dissertation for graduate
students of the senior project personnel.